Development of a Mixed-Integer Optimization Package for Process Synthesis

The objective of this three-year U.S.-Yugoslav cooperative research project in chemical process design between Peter Glavic, Z. Kravanja, of the University of Maribor and I. Grossmann of Carnegie Mellon University is to develop a computer system to solve production problems in chemical processing. The researchers propose to develop a software model for optimal planning and scheduling of multiproduct processes. Dr. Kravanja and Dr. Grossman have conducted some preliminary work together. They propose to develop software which can be applied to environmental, energy consumption and factory retooling and retrofit problems, and which can be used as a teaching tool in engineering education. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The award, except for funds for U.S. scientist travel, is made to the Yugoslav institution.